Improvement of Infrared Spectroscopy Laboratory Experiences

The undergraduate chemistry laboratory program is being improved by the incorporation of new infrared laboratory experiences. An infrared spectrometer has been purchased which is suitable for teaching, routine analysis and senior research applications. Increasingly complex laboratory utilization of the instrument is planned as the students progress from organic chemistry to instrumental analysis and physical chemistry and finally to senior research applications. These laboratory experiences are complementing and supplementing the student's present laboratory experiences which are centered around an array of basic instrumentation and a few more sophisticated items. These additional laboratory experiences are better equipping the graduates to meet the challenges of industry and graduate programs. The grantee is matching the award from non-Federal sources.